Request for a Technical Associate to Support the Isotope Geochemistry Laboratories at the University of Rochester-Phase II

0132389
Basu

Funds from this grant provide continued partial salary support for a technician to oversee operation and maintenance of the isotope geochemistry facility at the University of Rochester. This is a Phase II technician support grant and follows three years of initial NSF support (EAR-9730743). The isotope geochemistry facility at Rochester houses four mass spectrometers including a thermal ionization mass spectrometer (TIMS), a multicollector inductively coupled plasma mass spectrometer (MC-ICP-MS), a quadrapole based ICP-MS and a noble gas mass spectrometer. These instruments are use by faculty members Basu, Anbar and Poreda for research projects ranging from studies of the petrogenesis of flood basalts to investigations of biological fractionation of heavy metal isotopes during mineral weathering to studies of cosmic dust fluxes to the surface of the earth over geologic time. The instruments supported by this technician will continue to provide a valuable research and educational tool to the University and to a number of collaborating geoscientists. As the University has committed to picking up full time support for this position following this Phase II award, NSF support has aided in the creation of an university funded job in the geosciences field that is an alternative to traditional academic career paths.
***